Structural Characterization of Ion - Molecule Interactions

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Lisy will study microscopic ionic solutions using both experimental and simulation methods. The binding between cations and host molecules in the presence of hydrogen-bonding solvents such as water and methanol will be investigated using infrared spectroscopy of mass-selected ion clusters. Aromatic hydrocarbons and crown ethers will serve as models for peptide aromatic side-chains and ionophores, respectively. Molecular dynamics simulations will be compared with experimental observations and will be helpful in interpreting the observations. The results of these investigations will help the understanding of ion-molecule interactions in solvated media. These studies will bridge the gap between gas-phase mass spectrometric measurements and solution-based studies. Interactions between neutral molecules and electrically charged atoms or molecules, called ions, are of fundamental importance to a number of areas, including chemical processes in liquid or solid solutions, and ultimately in biological systems. Similarly, examining gas phase ion-molecule processes is important for understanding chemical reactions in the upper atmosphere